"OUR WEAKENING WEB: THE STORY OF EXTINCTION"...

The Museum will develop an interactive traveling exhibition entitled "Our Weakening Web: The Study of Extinction" that will explore the process of extinction and examine the current role humanity is playing in that process. Is humanity accelerating the rate of extinction by modifying the global environment? The goals of the exhibit are 1) that visitors discover that extinction is a natural process, 2) that visitors explore the many ways humanity is modifying the world,s environment, and 3) that visitors understand how their actions are related to the world's environmental problems and how they can make changes in their lifestyles to help protect the environment. Three size versions (8000 sq. ft., 4000 sq. ft., and 1800 sq. ft.) of the exhibit will be created in order to maximize the number of museums that are able to accommodate the exhibit. After its opening in Cincinnati in 1994, it will travel to approximately twenty-eight museums during the next three to four years. Each venue will have the exhibit for about four months. Complementary activities will be developed and manuals describing these as well as sample materials will accompany each exhibit. These activities will include a teacher's guide, local resource guide, on- floor demonstrations, short theater presentations, and an adult lecture series. Sample press kits and copies of all promotional materials will be included in the exhibit package as well.//